Stellar and Solar Magnetic Activity Cycles

This continuation of the Solar-Stellar Spectrograph Program incorporates a new paradigm to the investigators' research: observing the stars as a sun, rather than the sun as a star. While chromospheric diagnostics continue to play an integral part in analysis, the investigators have realized spectral lines originating from the 'quiet' Sun and stars have potential to significantly alter the way long-term solar and stellar variability is studied. Thus, they use the full content of spectra to pursue a deeper understanding of several important issues; namely, (1) relative variability of the Sun and solar-analogous stars, (2) nature of 'Maunder Minimum' stars, (3) response of quiet and active lines to variability on different timescales, and (4) using these data as predictors of upcoming activity.